Fundamental Studies of Micro-Droplet Deposition in the Droplet-Based Manufacturing Process

Chun DMI-9634931 Droplet deposition is fundamental to droplet-based manufacturing (DBM) processes. The challenge of this technique has been the simultaneous control of both geometry and microstructure during the direct manufacturing of a part drom the molten state. This research project will develop a high-precision and uniform-droplet deposition system to investigate deposition phenomena, including microscale process monitoring of the droplet thermal state and impact dynamics, microstructure evolution and modeling, and evaluation of spray deposits. This is a collaborative research project between the Massachusetts Institute of Technology and the Northeastern University. The research project has a balance between theory and experiment, and will provide valuable findings for the rapid prototyping industry.